Empowering Postdoctoral Researchers: Leading Innovation and Discovery

This action funds a multi-disciplinary workshop of NSF Postdoctoral Fellows focused on the new NSF strategic plan and its impact on career development of young scientists. Broader impacts include better methods for evaluation of early career interventions, not only for the invited participants but also for the broader postdoctoral community of scholars.